Conference: Southeastern Number Theory Meetings

This award supports three Southeastern Number Theory Meetings. In mid-September of 2023, the first meeting will take place at Wofford College in Spartanburg, SC. Clemson University in Clemson, SC, will host the second meeting on the first weekend of December 2023. The third meeting is planned for April 2024, at the Armstrong Campus of Georgia Southern University. The meetings consist of participant talks on current research in all areas of number theory, including analytic number theory, arithmetic geometry, and automorphic and modular forms. The topics reflect the research interests of number theorists working in the Southeast. Each meeting features plenary talks by nationally and internationally recognized leaders in the field, invited talks by graduate students and postdoctoral researchers, and a larger number of contributed talks by mathematicians at all levels, including undergraduate and graduate students, and junior and senior faculty. Number theorists from outside the Southeast will give the invited and plenary talks, while regional researchers will give most of the contributed talks.

A primary goal of the Southeastern Number Theory Meetings is to provide members of the number theory community in the Southeast with an opportunity to learn about new and significant research in number theory and to disseminate their own research. Students and early-career researchers in the community particularly benefit from the meetings. The meetings strengthen their knowledge base, expose their work to a wider audience, and give them insightful input and feedback from other participants. Funding from the NSF allows the organizers to achieve their goals at a low cost to individual participants. These meetings integrate regional mathematicians who may have little or no funds for professional travel into the research community. The organizers will continue efforts to attract a demographically diverse participant base, including women and racial and ethnic minorities. Further information on these meetings including the locations, dates, lists of speakers, lists of participants, and registration information will be linked to the conference home pages as it becomes available: http://www.math.sc.edu/~boylan/seminars/pantshome.html and http://www.math.clemson.edu/~kevja/SERMON.